RAPID: Acquiring Extensive High Resolution Solar Data for Enhancing Research on the Build-up to Coronal Mass Ejections (CMEs)

The Principal Investigators (PIs) intend to take advantage of a unique opportunity for complete access to the Dutch Open Telescope (DOT) on La Palma in the Canary Islands, which specializes in high-resolution solar imaging. For this project, this science team is being offered the entire 2010 observing season which runs from April to October at La Palma. This effort is extremely timely, given the delayed rise of activity in solar cycle 24 that has followed the deepest solar minimum in over a century. The year 2010 provides the only opportunity in this decade for scientists to study the rise of a new solar cycle after such a deep minimum of activity.

The DOT is a superior facility for high-resolution ground-based solar imaging, taking advantage of advanced on-site optical speckle processing. The DOT exploits excellent daytime seeing conditions on La Palma which minimize turbulence and cloud obscuration. The DOT is also capable of tomographic observations of the Sun using filters set at nine wavelengths, with each optical wavelength sampling a different height in the solar atmosphere.

This international research effort will directly contribute to improved space weather forecasts of coronal mass ejections and solar flares. The lead PI is from a small woman-owned company and this effort will directly involve four female scientists, as well as one additional female scientist as an external collaborator. This project therefore will contribute to diversity and increased participation of under-represented groups in the physical sciences.